FIBR: A Systems Approach to Study Redox Regulation of Functions of Photosynthetic Organisms

Redox homeostasis is central to the functions of oxygenic photosynthetic organisms
such as cyanobacteria and plants. In this project, a systems approach will be
undertaken to analyze the impact of cellular redox status on the overall functions of
these organisms. The initial focus will be on the cyanobacterium Synechocystis 6803,
with subsequent applications in the understanding of the biology of Arabidopsis, a
vascular plant, and Physcomitrella, a non-vascular plant. Synechocystis 6803 has a
completely sequenced genome and is amenable to high-throughput genome level
manipulations. Although the detailed inventory of the genes, transcripts and proteins are
available for Synechocystis, it is inadequate to comprehend the organizational hierarchy
of the complex functions of this organism. A multidisciplinary approach will be used to
resolve this gap in fundamental knowledge. The expertise of the project team spans
molecular genetics, biochemistry, proteomics, metabolomics, computational biology and
systems engineering, which includes nonlinear modeling, estimation and statistical
analysis. The experimental research experience of the team spans model systems in
cyanobacteria, moss and flowering plants. One aim is to infer a gene regulatory network
in cyanobacteria that will include identification of the sensing and signaling pathways. In
addition, a gene regulatory network will be independently generated in Arabidopsis, and
the conservation of the genes and interactions will be evaluated. The network will be
validated, the contribution of the network modules to the overall redox regulation will be
studied, and the model will be extended to Physcomitrella. Such an iterative process is
expected to generate fundamental insights into the organization and function of the
redox control network (RCN) in these organisms. Furthermore, the proposed approach,
viz. first to model an RCN in cyanobacteria and then to extend it to plants, will highlight
the expected conserved nature of these processes during the evolution of land plants.

Broad Impact: The research activities in this project will be intimately connected to the
training and development of undergraduate, graduate and post-doctoral students, and
visiting scholars, both at Washington University and Colgate University. In particular,
students from both Biology and Systems Engineering will become well-versed in the use
of mathematics and computational methods to answer challenging questions in biology.
Collaborative interactions with Saitama University will allow scientific interactions and
research visits between USA and Japan. An important goal of this project is an
integration of cutting-edge technologies with learning experiences that will inspire faculty
and student development from small colleges lacking significant research programs.
The students will obtain mentoring, research credit and training. They will become
aware of the fascinating array of activities and career choices in modern life science
research. Hands-on training in genomics, bioinformatics and systems science research
will have far-reaching educational impacts well beyond the project period.
The link for the project web site is http://www.sysbio.wustl.edu/.